GOALI: Analytical and Experimental Studies in Drill Temperatures with Heat Pipe Cooling: A Novel Approach

The project will study a novel idea using heat pipe technology to eliminate the need of fluid in drilling. The effect of heat pipe cooling will be investigated analytically and experimentally. During drilling, the heat pipe rotates and is subjected to centrifugal and Coriolis forces. In a conventional heat pipe, capillary force pumps fluid from the condenser to the evaporator. However, this function will be performed by centrifugal force in the proposed approach. A three-dimensional numerical analysis will be performed to predict the temperature in the drill and in the heat pipe. A companion experimental study will be performed using twist drills with heat pipes to assess the effectiveness of heat pipes in reducing tool wear and cutting fluid. Temperatures will be measured using infrared sensors and thermocouples. The research will be conducted by a multi-disciplinary team with participants from University of Wisconsin-Milwaukee, Oakland University, and Lamb Technicon.

This project has the potential of simultaneously improving quality and reducing costs for drilling, by increasing drill tool life and eliminating cutting fluid. Environmental concerns provide an additional impetus towards eliminating the cutting fluid.